Integrated Ocean Resource Applications Workshop

The purpose of the workshop is to develop a strategy and plan for advancing U.S. economic interests in our 200 mile Exclusive Economic Zone (EEZ). The workshop will focus on: 1) the present status and urgency for addressing this subject, 2) the economic value of U.S. EEZ resources to the Nation, 3) areas of policy concern, 4) institutional roles and technical capabilities, and 5) opportunities for enhancing U.S. competitiveness. The workshop will develop national plan for energizing industry, the university community, and government to find creative solutions to the problems that are inhibiting growth and development in this important U.S. economic sector.